Assessment of the Impact of Earthquake Education on Hurri- cane Preparedness

Given its earthquake history, Charleston, South Carolina had undergone an earthquake education program prior to Hurricane Hugo striking on September 21, 1989. This study seeks to examine how effectively earthquake education in the Charleston, South Carolina area transferred to appropriate preparedness and response activities for Hurricane Hugo. The primary data collection methodology will consist of telephone interviews with a sample of participants in the earthquake education program and a control sample of residents in the greater Charleston area who did not participate in the program. Supplemented data will be obtained through more extensive personal interviews with a smaller subsample of persons who participated in the phone survey.